Ownership Patterns, Monitoring, and Corporate Performance

9308238 Admati Much controversy surrounds the division between ownership and management of large corporations. Diversified ownership confers benefits from spreading risk, but it can dull owners' incentives to monitor managers. Shareholders who control a significant fraction of the shares of a firm have stronger incentives to monitor and control its managers; indeed, it has been claimed that the greater concentration of ownership found in Japan and Germany has resulted in more effective control of managers, lower costs of capital, and (thus) greater levels of investment and efficiency than in the U.S. The authors will investigate how ownership patterns and the resulting patterns of monitoring management are determined as an equilibrium, and how they affect the cost of capital, investment, and corporate performance. Research will study both mature, publicly held firms whose shares are traded in well functioning markets, and privately held firms, where the "large shareholders" are venture capitalists. The methods employed will be primarily theoretical in nature, based on economic models of capital markets and self-interested behavior. This research should lead to better understanding of the efficiency of capital markets and how they interact with the productive sector, leading to better-informed regulatory prescriptions. ***